Scientific Conference on Computer Aided Proofs in Analysis, University of Cincinnati, Spring 1989

A three or four day conference on the use of algebraic processors as a tool in pure and applied mathematics will be held at the University of Cincinnati in the spring of 1989. It will bring together researchers from various disciplines who are using algebraic processors in their work, developers of general computer packages, representatives of the computer industry, and interested scientists who wish to learn about these developments. Plenary sessions and contributed paprs are expected to deal with computer-aided proofs of mathematical theorems, exact calculations, new algebraic algorithms, and software development. Time for demonstrations and informal discussions will also be allocated. Conference should help to promote the use of algebraic processors in mathematics and probably in other sciences as well, and should also promote the dvelopment of better software for algebraic manipulation.